External Research: A primary component in American Indian Retention, Graduation, and Matriculation

College of Menominee Nation (CMN) seeks to increase the number of CMN
STEM students participating in external research-based student internship opportunities.
External research is defined as research outside of CMN and outside of the Menominee
Reservation and other local communities. The project is expected to increase STEM student
retention, graduation, and matriculation rates.
The project uses three strategies.
􀁸 Development and coordination of the project: Key activities include hiring a researchbased
internship coordinator, reviewing feasibility of requiring research-based internships for
STEM degree attainment, coordination of advisory board meetings, and leveraging of outside
partners to establish consistent research-based internships.
􀁸 Efforts to institutionalize the project: Key activities under strategy two include researching,
and organizing the research opportunities, creating a database of opportunities, developing
and coordinating processes, developing and maintaining a research-based internship
webpage, and leveraging funding to provide student support for such opportunities.
􀁸 Provision of critical student support activities aimed at increasing STEM student
participation in external research-based internship opportunities: Activities include
recruiting STEM students to participate in program, matching students to appropriate
opportunities, assisting with applications, and preparation for requirements, and interviews,
assisting students make connections, encouraging students through the process, advocating
for student acceptance into internship programs, providing extensive follow-up and developing
and coordinating a series of workshops related to research-based internships.
Intellectual Merit: Tribal Colleges are key contributors to the body of knowledge on American
Indians. To date many Tribal Colleges have integrated research opportunities into their STEM
capacity; however the focus has been on providing these opportunities within the context of the
tribal colleges system and community. Although these experiences are indeed valuable to
gaining student interest and are providing numerical increases in retention and graduation rates,
they exclude critical exposure opportunities for students outside of the institution and outside of
the community. To date, CMN has documented increased retention and graduation rates of
students participating in external research. However these are only a handful of students. It is
critical that further study on the importance and impacts of external research-based internship
opportunities within the tribal college system take place. Such data will focus on the impacts of
external student research and how it achieves the ultimate outcomes of NSF’s investment in
tribal colleges: ensuring students graduate, matriculate into four-year and graduate STEM
programs, and enter the workforce system as diverse qualified individuals.
Broader Impacts: CMN’s project will build upon the research of the several NSF TCUP grants
it has completed, continuing the investigation of essential research in discovering and
understanding how Tribal Colleges and the unique strategies they implement promote STEM
education in minority students. As an institution that serves predominantly Native American
students, CMN’s project further advances the research of American Indian undergraduate
education in STEM courses and programs as well as contributes to the global body of
knowledge in underrepresented minority STEM education. Short term impacts include increases
in retention and graduation rates at CMN. Long-term project impacts include an increase of
American Indians in four year and graduate STEM programs as well as an increase in American
Indians in STEM employment fields.